Integrated Raman and Angular-scattering Microscopy (IRAM)

CBET-0754698
Andrew Berger, University of Rochester

An optical probing and imaging technique called Integrated Raman and Angular scattering Microscopy (IRAM) will be developed for the purpose of simultaneously studying the chemical and structural composition of single cells. The engineering challenge of unifying Raman and elastic angular-scattering measurements on a high-resolution microscopy platform will first be addressed through basic studies on microbeads and immune cells. The development of dendritic immune cells from immature to mature phase will then be studied using the IRAM technique. Specifically, chemical and structural changes will be sought at various timepoints to shed light on the signal pathways that steer the differentiation process.